Mathematical Sciences: Stochastic Processes and Their Applications

The principal investigator, along with the post-doc Klutke, will continue his research on measure-valued stochastic processes and their sample path properties such as "local times". The occupation measure of a stochastic process leads to a local time if it is absolutely continuous with respect to a non-random measure (and the derivative with respect to this measure defines the local time). Analytical properties of local times will be studied for Dynkin's superprocesses. Explicit solutions will be demonstrated constructively via the filtering equation. Estimation and prediction problems will be studied for the measure-valued processes.